Applications of Parallel Supercomputing to Astrophysical N-body Calculations

Parallel, distributed memory supercomputers have proved capable of very large gravitational N-body simulations. In order to address further questions in cosmology and the large-scale structure of the Universe, new algorithms which can model the dissipative dynamics of gas, as well as dissipationless gravitational dynamics will be needed. This project will focus on developing a parallel "Smooth Particle Hydrodynamics" (SBH) code, and use it in an ongoing astrophysics collaboration studying the formation of large-scale structure in the universe. The applicability of parallel computers and large N-body simulations to globular cluster evolution and an alternative to SPH, based on multigrid methods, for evolving the dissipative equations of motion will be considered. Finally, the applicability of new high-level software systems to particle methods in computational astrophysics will be investigated.